Knot Complexity and the Structure of Polygonal Knot Space

The investigator studies connections between knot complexity
and polygonal knot spaces, and develops effective methods to
quantify and and characterize knots. The project involves
computation and software development as well as analysis and
experiments. With colleagues and students, the investigator
explores relationships between various experimental measurements
of complexity of knots in physical materials, such as DNA and
polymers, and mathematical characterizations of knot complexity.
Previously defined functions, such as energies and rope-length,
are compared to new quantities, such as measurements of the
convex hull and of a "smallest" box containing the knot, to
capture various spatial characteristics. These quantities
predict the types of knots that are encountered as one moves
through knot space. They also are used to understand changes
that occur in small and large-scale knotting in polygonal knot
space as a result of perturbations.
From DNA replication to unraveling one's garden hose,
knotting and tangling are a part of many physical systems. Some
knots are easier to tie (i.e. less complex), and thus more likely
to occur in these situations. How does one quantify the
complexity of a knot? What measurable attributes fully explain
the complexity of a mathematical knot (i.e. a closed loop in
space)? Mathematicians have defined several functions, called
"knot energies" that quantify the "tangledness" of knots.
Simultaneously, scientists have completed physical experiments on
knots made of real materials, such as DNA and polymers, that
determine other measures of complexity. To what extent are the
theoretical and experimental quantities related? Are the
quantities delivering the same information or does each number
reveal something different about the knot? In particular, can
one use these functions to create more realistic physical models
of DNA? In this project, the investigator, colleagues, and
students explore the quantification of knot complexity and its
relation to spaces of polygonal knots by integrating theory with
computer simulation. Previously defined theoretical measures,
such as energies and rope-length, are compared to new quantities,
such as the surface area and volume of the convex hull, to
capture various spatial characteristics related to the knot.
Physical experiments and computer simulations are performed and
statistical analysis applied to understand their interrelations.
These quantities also predict the types of knots that are
encountered as one moves through polygonal knot space and
explains changes that occur in small and large-scale knotting as
a result of perturbations. This provides scientists with a
better understanding of the mathematical models that are
currently employed and suggest refinements to improve these
models.